Terahertz Microwave Generators from Submicron n+ -n-n+ Diodes

9526112 Mitin Solid state millimeter and submillimeter wave systems find wide application in communications, radar, diagnostics, and other fields. Millimeter wave system (frequency range: 30-300 Ghz) are relatively well developed. Submillimeter wave (300-3,000 Ghz) systems are still far from practical realization, due to a lack of suitable submillimeter radiation sources (SRS). For the theoretical design of SRS, we will employ submicron diodes in a nonconventional regime, i.e., charge accumulation due to transient overshoot rather than stationary negative differential conductivity. Preliminary results demonstrate that nonconventional regime devices can operate at frequencies as high as 500-800 Ghz. To attack this problem, we have developed a complex of programs for the numerical simulation of microwave power generation in two-terminal devices which account for the external resonant circuit. One package of programs is based on a full kinetic description of device operation in an external circuit using the Monte Carlo particle (MCP) technique. A second package is based on a modified hydrodynamic method (MHM) we have developed for the analysis of dc and ac hot-carrier transport in semiconductor materials and devices. Using MHM and MCP methods, we will extensively investigate the possibility of obtaining microwave diode generators in the terahertz regime. ***